RPG: Quantitative Assessment of Performance in Complex Multisensory Human-Interface Environments

The objectives of this planning grant are to identify important human-interface design issues associated with complex multisensory interface, to identify quantitative measures to assess performance in environments that use these interfaces, and to develop projects using advanced interfaces in the rehabilitation community. Possible applications include virtual reality therapy, web-based quantitative assessment, and the interfacing of medical devices with telecommunications to provide care in the home (tele-care). The methodology will be to explore potential advanced interfaces from a human computer interface design perspective and also to explore methods for quantifying performance in such environments. Two tasks will be accomplished during the time frame of the planning grant, assessing interface hardware and designing evaluation tasks. Theoretical models of the human as an information processor can help to approach the evaluation of input and output devices for 2D and 3D tasks. A conceptual model will be developed to identify and assess the important parameters of these devices. In particular, the human control loop will be focused on to optimize human performance. Advanced interface devices may include 3D mice, hand/finger trackers, head and eye trackers, and haptic interfaces. Haptic interfaces are of particular interest such as the interaction of force and visual feedback on human performance. Classic human performance methods will be used to test the interface devices. A test battery will be developed to evaluate the appropriateness of using simple tasks for assessment of performance. Measures of motor control will be tested using a movement time task based on Fitts law and classic teleoperator tasks such as "peg in the hole" will be used to test manipulation capabilities of the interface devices.